"EMSW21-MCTP" The University of Tennessee Math Honors Program

A departmental honors program at a moderately selective public research
university can play a significant role in the mathematics education of
talented American students. Such universities cast a wide net. Large merit
awards draw a few students with sterling high school records while thousands
arrive each year having, for whatever reason, not amassed the high SAT/ACT
scores and leadership roles needed to gain admission to highly selective
institutions. Sifting through the latter group reveals a small but significant
number with latent high mathematical talent. These 'sleeper' students come to
life during their first exposure to abstract math, and their work in advanced
courses can match or exceed that of their peers who excelled in high school. A
strong departmental honors program can be the framework that identifies and
supports this diverse group, drawing on the department's graduate and research
resources as it guides them as rapidly as possible through the transition to
advanced abstract and applied mathematics.

The University of Tennessee Math Honors Program provides early identification
of talent, a flexible curriculum that places undergraduates in graduate
courses as early as the sophomore year, an honors seminar, and significant
mentoring and advising. The program draws on the surrounding rural Appalachian
region, providing opportunity to students who may have received little support
and stimulation in high school for their mathematical abilities. More than 75%
of the grant is devoted to direct financial support to students in the form of
merit and need-based scholarships, research stipends and summer tuition
remission. Scholarships will be awarded to a few incoming freshmen, but mainly
to current UT students who decide to follow an accelerated track through the
honors program. University cost sharing of close to 10% of the grant total
will allow the program to offer multi-year scholarships extending beyond the
five-year term of the grant. Additional funding supports graduate students as
summer research mentors for undergraduates, administration and assessment of
the program. A 'math ambassadors' program funded by the grant will send honors
students to high schools to increase interest in mathematics in general and
the UT Math Honors program in particular. The funding is expected increase the
size of the UT Math Honors program by more than 50%.